NSF Young Investigator

9457697 Yu Conceptually new multifunctional polymers and new polymerization methodology will be developed. New conjugated photorefractive polymers with enhanced quantum yield and charge carrier's mobility will be thoroughly investigated. New conjugated liquid crystalline (LC) polymers and their unique properties will be studied. %%% ***